Regulation of Trout Growth Hormone: Cloning, Expression and Gene Transfer

(A). Basic Aspect: This project is aimed at studying the mechanism of regulation of growth hormone gene expression at the molecular level in the fish system. Specifically, studies will be conducted to: (i) identify factors that regulate the expression of GH genes, and (ii) to elucidate the molecular mechanism of tissue specific and developmental stage specific expression of these genes. (B). Applied Aspect: Successful growth and development in finfish and shellfish is a prerequisite for the success of aquaculture. Knowledge of unequivocal identification and understanding factors that regulate the expression of fish GH genes will facilitate designing of realistic strategies for enhancing the growth rates of finfish and shellfish in aquaculture operations.//